NeTS: Small: Free Space Optics as Backhaul and Energizer for Drone-assisted Networking

SoarNet (free Space Optics as bAckhaul and energizeR for drone-assisted NETworking) aims to simultaneously and rapidly transmit data and energy from an access node to a Drone-mounted Base Station (DBS), which can be flexibly deployed to provision wireless broadband access. That is, the DBS can simultaneously receive high-speed data streams and energy via optical beams. The received energy is used to power the DBS to prolong its flight and received data streams are delivered to Mobile Users (MUs) via existing Radio Frequency (RF) channels. SoarNet will be a game changer for mobile access. By leveraging Free Space Optics (FSO) communications and the drone-assisted mobile networking framework, SoarNet will significantly enhance the throughput of the network and Quality of Service (QoS) of MUs and will advance the state of the art of wireless networking and wireless charging. Proposed research activities will advance the understanding of simultaneously charging the DBS and transmitting data at high speed.

SoarNet comprises three major research endeavors. 1) Actualizing the SoarNet architecture to construct a FSO transmitter at an access node and a FSO receiver at a DBS to provision simultaneous energy transfer and data transmission; meanwhile, two mathematical models will be derived to estimate the charging rate by applying FSO as a charger and the transmission rate by applying FSO communications as wireless backhauling. 2) 3D DBS placement in SoarNet, to determine the longitude, latitude, and altitude of the DBS to maximize the throughput of delivering data to MUs in the access network, while guaranteeing the requirement of the DBS's charging rate. 3) Dynamic access node association and MU association, to associate the DBS with an access node (i.e., the DBS receives the data streams and energy from the access node) and adjusts the MU association area of the DBS (i.e., more/less MUs are associated with the DBS to download their data) in order to balance the traffic loads among access nodes, thus further improving the quality of service (QoS) in terms of the average delay of downloading data to MUs.